Stability Theory in Continuous First Order Logic

First order logic is suitable for describing and studying classes of
"discrete" structures: fields, groups, graphs, etc. Model theory, and
in particular stability theory, provided several striking structure
theorems for such classes: for example, the fact that every vector
space is determined by (the cardinality of) a linear base, while every
algebraically closed fields is determined by a transcendence base, are
both special cases of Morley's Theorem: in any class of structure to
which this theorem applies, all structures are generated by a suitable
base. Shelah's classification theory is a vast generalisation of
Morley's Theorem, yielding structure theorems to many more classes of
structures. While all these theories were developed for classes of
discrete structures, they seems to hold, at least to some extent, for
classes of metric, or "continuous" structures: for example, compare
Morley's theorem with the fact that every Hilbert space is generated
(as a complete metric vector space) by an orthonormal base. This
proposal seeks to further adapt classical structure results from
stability and classification theory to classes of continuous
structures.

This proposal therefore seeks to extend the results and techniques of
stability theory, and in particular superstability, to the setting of
continuous first order logic, aiming towards a generalisation of
Shelah's Main Gap Theorem. Continuous first order logic has the
advantage of being a natural generalisation of first order logic,
while at the time accommodating many natural classes of (metric)
structures arising in functional analysis and probability theory
(various classes of Banach spaces possibly with additional structure,
measure algebras of probability spaces and of adapted spaces, etc.)
New complications arising from the presence of a non-discrete metric
require us to revise the fundamental definitions (superstability,
ranks, etc.), and renders most of the classical theory, and in
particular the notion of regular types, seemingly inapplicable.
Nevertheless there has been considerable progress recently in this
direction, such as an adaptation of Lachlan's theorem to continuous
superstable theories, and there are indications that similar
techniques can be used towards finiteness of weight and its
consequences, which seem the natural next step towards the achievement
of this programme.